Presidential Young Investigator Award

Dr. Full plans to continue studying animal energetics. He wants to determine whether or not the cost of locomotion is indirectly proportional to body size, if cost is independent of the number system. He wants to unravel the underlying biomedical/biochemical basis by looking at a diverse group of animals including ants, crabs, millipedes, lizards, birds, and mammals. Dr. Full is the first to employ miniature force plate to analyze forces involved in movement patterns of tiny insects. He will develop other force plates to be applied in analyses of other animals. This research will aid in the development of general theory of animal design and movement in general.